Engineering - Mathematics Training Institute

This 3 week program is for 20 high school teachers per year for 2 years who will be drawn from all counties within Maryland and Baltimore City. The complete program integrates math and science with engineering design using both hands on experiments and video tapes. Participants will be provided with ready to use modules and laboratory kits that integrate engineering with mathematical and scientific concepts. Field trips to NASA and NIST are included. During the academic year follow up the teachers will meet together to discuss classroom applications, EMTI faculty will visit schools and maintain contact with participants. EMTI and the NSF young scholars program will be run simultaneously affording unique opportunities for shared learning and interaction between teachers, students and University of Maryland faculty. Cost sharing estimated is 18.3%